Internet Access to Large Government Data Archives: The Direct Edgar Access System

9319331 Kambil The Internet computer network is a U.S. priority, receiving substantial backing from agencies ranging from the National Science Foundation to NASA to the Department of Defense. This infrastructure is widely available in university, research, and government institutions. The Internet and related initiatives are a key part of the emerging National Research and Education Network. While the network is already in place there is considerable work to be done to make large data archives available over this infrastructure. This project investigates techniques by which the government can make large archives available to the public over the Internet. A key goal of the project is to provide an example for agencies from which they can learn to directly provide information to the Internet in a cost-effective manner. This project will develop and demonstrate ways to post large government data archives on the Internet for access by researchers and the general public. The two-year project will use the Securities and Exchange Commission (SEC) EDGAR Database as a test database and will develop and implement techniques to provide the low-cost management and dissemination of these data archives. The goal of the project is to develop techniques that can be used directly by government agencies another information providers, giving these organizations the tools and knowledge to allow them to place government information on the Internet for direct access by researchers and the general public. Secondary goals o the project are to make key financial archives from the SEC available to researchers and the general public who would not otherwise have access to the information.